Modern Introductory Physics: The Second Semester Course

Colgate is engaged in a major revision of its introductory calculus-based physics curriculum. This is being done to address three concerns: declining enrollments, inadequate preparation of incoming students, and low minority representation. The first semester of the new curriculum, called Modern Introductory Physics, has been developed and taught over the past five years. Organized about the theme of atoms, it presents to freshmen the central ideas of twentieth century physics. This is a strong motivator, and the course has been well received by students. This project is directed at development of the second semester curriculum. The theme chosen, unification, builds naturally on the first semester material, easily encompasses the traditional topics of the introductory course, and presents physics as the great unifying science. The three sections of the course are Newtonian Mechanics, Conservation Laws, and Statistical Physics. The course concludes by discussing the origin of the elements, bringing students full circle to the beginning of the first semester study of atoms. Faculty expect to generate 300 pages of supplementary written materials plus eight novel laboratory exercises blending classical and modern physics. An outside consultant will be employed to teach staff the methods of course evaluation, and the results will be reported in the published literature.